Workshop on Uncertainty in Modeling and Simulation

Crowley 9812786 The investigator and his colleagues organize a workshop on uncertainty in modeling and simulation. Its aim is to sketch out broad scientific questions and promising avenues of research related to uncertainty issues, to document the potential impact of the issues, and to produce a report outlining key research issues. The report will be distributed in print and via the web. Uncertainty issues arise throughout science and engineering. The problems these fields tackle involve nonlinear phenomena and complex systems that are not well understood; observations are not error-free and are irregular in space and time (weather and climate data typify these characteristics); and many natural and engineering processes are inherently stochastic or chaotic. The mathematical and statistical models of such systems share the same features of complexity, nonlinearity, and stochasticity. Scientists, mathematicians, and engineers analyze and compute with these models to understand and predict the underlying systems. Therefore the recognition and the management of uncertainty are important issues in both analysis and computation as well. Hence the meeting involves engineers, mathematicians, and scientists. The interplay between these disciplines is essential to form the required perspective of opportunities and challenges that arise from dealing with uncertainty. Identifying key research issues is an important step in guiding research; the results affect every area of science and engineering.